Wilderness in Alaska: The Need for Cross-Disciplinary Understanding of Meanings and Values

ABSTRACT
OPP-0117286
Alessa, UAA

This workshop brings together scientists from the circumpolar North to compare different approaches to the valuation process for terrestrial and aquatic ecosystems protected as wilderness. Also included are land managers, students, and local decision-makers. The goals are to assess the state of knowledge of wilderness valuation; explore the roles of nature tourism, ecological protection, and human-environment relationships among local and indigenous societies; compare national, regional, and local policy dimensions of wilderness resource use allocation; and develop a common framework for analysis of cross-disciplinary, circumpolar wilderness protection issues.